The Alexandria Project: Towards a Distributed Digital Library with Comprehensive Services for Images and SpatiallyReferenced Information

This project is concerned with the design, development, and evaluation of a distributed digital library - the Alexandria Project - of spatially-indexed information that includes collections of maps and images digital form. The goal of the Alexandria Project is a distributed testbed that provides geographically dispersed users with access to a geographically dispersed set of library collections. Users will be able to access, browse and retrieve specific items form the collections of the library by means of user-friendly interfaces that integrate visually-based and text-based query languages. Librarians will be provided with facilities that enable them to extend their collections of appropriately formatted materials and to add meta- information to their electronic catalogue.